CAREER: The Relationship among Phonology, Syntax & the Lexicon in Specific Language Impairment

9875168
Stromswold

Some apparently normal children inexplicably have difficulty acquiring
language. Specific language impairment (SLI) is the term for severe
developmental delays in the production and/or comprehension of
language that do not seem to be due to hearing loss, mental
retardation, motor deficits, neurological or psychiatric disorders, or
lack of exposure to language. In this project, three types of studies
will be conducted on normally-developing and SLI children: 1) analyses
of longitudinal spontaneous speech samples; 2) analyses of
cross-sectional elicited speech samples; and 3) analyses of imitated
sentences that systematically vary in phonological, syntactic and
lexical complexity. Through careful analyses of these data, we will
address the following questions:

* What is the nature of the linguistic deficit(s) in SLI?
* To what extent are some components of language (e.g., syntax, phonology,
lexicon) spared relative to others in SLI?
* To what extent do performance factors play a role in SLI children's
deficits? To what extent does SLI and normal children's performance
on language tasks degrade as performance load increases?
* Do SLI and normal children have a single (limited) pool of performance
resources for all language tasks, or does each subcomponent of
language have its own dedicated resources? Does increased performance
load in one area of language lead to decreased performance in just
that area or in other areas of language as well?